Participant Support for Newton Institute Program on Biomolecular Function and Evolution in the Context of the Genome Project

9804739 Kurtz The problems facing molecular biologists in understanding and analyzing the flood of molecular genetic sequences and structures resulting from the Genome Projects raise a range of challenging biomathematical research questions. The Newton Institute will host a program on "Biomolecular Function and Evolution in the Context of the Genome Project." This inter-disciplinary program, on the function, structure and evolution of molecular sequences, will bring mathematicians and computer scientists working on subjects such as probabilistic modeling, stochastic processes, geometry, statistical data analysis, computational complexity, neural networks, genetic algorithms and expert systems, together with molecular biologists working in medical and biological fields. This award will support participation by US researchers. US participants will include graduate students and postdoctoral and senior researchers.